LifeTrek

The Brooklyn Children's Museum (BCM) will develop "LifeTrek," a 6000-sq. ft. permanent exhibition and related educational extensions. LifeTrek will be an integrated learning environment comprised of a series of immersive indoor habitats where children will investigate natural phenomena and processes. Designed for urban children ages 4-11 and their families and teachers, LifeTrek will provide a range of open-ended and challenging opportunities to practice science skills, and facilitate greater awareness of and respect for the natural world. Reflecting the ecological framework in which New York City resides, a northern estuary system, the exhibition will feature twelve object-rich habitats: stream's edge, flowing stream, freshwater pond, salt marsh, tidal pool, shore, dune, cliff, cave, meadow, fallen log and living tree.